Fourier-Transform Infrared Spectroscopy in Undergraduate Chemistry

The upper level chemistry laboratories are being improved by the incorporation of Fourier-transform infrared methods. The chemistry courses which are using the new FT-IR are Molecular Spectroscopy, Physical, Advanced Inorganic, Instrumental Methods of Chemical Analysis and Biochemistry. In addition, two chemically-oriented courses in geology (Mineralogy and Petrology are using the FT-IR. Compared to the dispersive IR instruments used previously, the FT-IR provides better resolution, higher sensitivity and superior performance in the far IR region. While it is difficult to use dispersive IR for the analysis of impure liquids and solids, the FT-IR (and its diffuse reflectance and multiple internal reflection accessories) are permitting students to gain hands-on experience with more modern analytical techniques, including mixture analysis and solution chemistry. Furthermore, students are becoming acquainted with the mathematical manipulations and computer methods involved in Fourier-transform techniques. As a result of this project, students are better prepared for graduate school and careers in industrial laboratories. The grantee is matching the award from non-Federal sources.